Japan (JSPS) Postdoctoral Program: Theory of High Temperature Superconductivity

This award will provide supplementary support to enable Dr. Barry Friedman of Sam Houston State University to conduct collaborative research with Dr. Mahito Kohmoto for eight months at the University of Tokyo. They will investigate certain aspects of high temperature superconductivity in an attempt to increase understanding of this phenomena. In the absence of any comprehensive theory for the phenomenon of high temperature superconductivity, the researchers will address the general questions of similarities and differences between the superconducting copper oxides and bismuth oxides, and differences between the dynamic and static properties of vortices in high- and low-temperature superconductors. Collaboration between Dr. Friedman, who has a background in the area of conducting polymers, and Dr. Kohmoto's group at the Institute for Solid State Physics should yield some insights into the basic principles of high-temperature supercon- ductivity.